Software Research Strategies Workshop: August 24-25, 1999, Los Angeles, California

9985707 Boehm, Barry W. University of Southern California
Software Research Strategies Workshop

The project organizes and runs a Workshop on Software Research Strategies in Los Angeles, CA on August 24-25, 1999 and then present the outcomes of the deliberations at an open forum at NSF on September 27, 1999. The workshop particularly focuses on the role and impact of software engineering in research and software practice and contributes to defining appropriate research agendas consistent with the recent Presidential Information Technology Advisory Committee Report. About 25 leading software engineering researchers from academia and industry form the workshop and address issues such as realistic expectations for software engineering practice with and without significant further software engineering research.